ITR:ENG A Simulation Approach for Physical Systems Involving Multi-Material Interaction Dynamics

The PI proposes to develop an innovative algorithmic development to simulate physical problems involving large-deformatin interactions among multiple materials such as fluid/solid regions with moving boundaries at the interface. The proposed research advances Information Technology through the development of a new paradigm, which incorporates leading-edge simulation techniques with high performance computing and data visualization.